Collaborative Research of the Joint Institute for Nuclear Astrophysics

0072636
Sherrill
The nuclear astrophysics and astronomy groups at Notre Dame University and Michigan State University have formed a collaboration for developing and promoting a wide scale experimental and theoretical nuclear astrophysics program. The Grant to support the resulting Joint Institute for Nuclear Astrophysics, JINA, will provide funds for a visitors program. The visitors program will be administered by Michigan State University and will allow a number of short term (one to two week) and a few long term (one to two month) visits from researchers from the astrophysical model community. The goal of the program will be to identify key nuclear reaction rates that can be measured with current experimental facilities. In particular, rates that relate to recent abundance observations now possible with large aperture and spaced based observatories will be emphasized.